Graduate Research Traineeship Program in Minority Politics

The Center for American Politics and Public Policy at the University of California, Los Angeles, has an outstanding group of scholars working on issues of race, ethnicity, and politics. This Graduate Research Traineeship in Minority Politics will attract and train a cadre of graduate students interested in the study of minority politics. The Graduate students will have opportunities to work on projects involving public opinion and political participation, urban poverty, and the role of minority elected and administative officials in local and national public policy. These traineeships will enhance the educational experience of students by permitting them undistracted time and energy to attend to the rigorous coursework and research required by this challenging field of inquiry. The goal of this award is to attract intellectually diverse and multiply-equipped students, with special attention to minorities, women, and others who have been under- represented.